Scientific Computing Research Environments for the Mathematical Sciences

PROPOSAL SUMMARY
The Department of Mathematics and Statistics at the Bowling Green State University will purchase a Sun Enterprice 450 Server which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for four research projects, including in particular:

_ James H. Albert: Markov Chain Monte Carlo Methods in Bayesian
Model Diagnostics and Model Comparisons
_ Tong Sun: Finite element methods for shells and general mixed finite
element code development
_ Gordon Wade: Inverse problems
_ Craig Zribel: Exact study of turbulent diffusion and pair dispersion in
homogeneous turbulence